Quantification of Base Cation Sources and Cycling in a Forest Ecosystem Using Strontium Isotope Tracers and Mass Balance Methods

The proposed research is a field study designed to quantify previously undetermined base cation cycling and weathering rates in a high-elevation coniferous forest in the Adirondack Mountains, NY. A new and unexplored transfer-reaction approach to the use of strontium isotope tracers will be integrated with more traditional chemical and ecosystem mass balance methods to obtain direct measurements of previously unquantified base cations fluxes, such as release from mineral weathering, removal from cation exchange sites and biocycling. The field site is on Whiteface Mountain, where the PI's has been studying nutrient cycling for over six years. Whiteface is a unique location for cation cycling and mineral weathering studies because the site has a pair of research watersheds underlain by granitoid bedrock of highly contrasting 87Sr/86Sr value. The proposed project will allow the PI's to quantify the influence of various ecosystem processes - such as atmospheric deposition, organic matter decomposition, cation exchange, and mineral weathering - on soil solution and stream chemistry and on the long-term contribution to total ecosystem inventories. Comparison of present and long-term contributions of these processes to cation cycling will provide insight into the mechanisms and magnitude of ecosystem response to environmental change.